SBIR Phase I: A Microfluidic-Based Biosensor for Food Pathogen Detection

This Small Business Innovation Research Phase I project will develop a portable, low-cost, multi-pathogen rapid detection instrument for food products. This instrument is expected to be fully integrated and will include a microfluidics-based bioseparator / bioreactor for pathogen capture and dual transducers for pathogen detection. The Phase I work will focus on the development of a proof of concept for the microfluidics-based bioseparator / bioreactor system.
The commercial application of this project is in the area of food processing and food distribution.